Research in Experimental Elementary Particle Physics

This award to the Elementary Particle Physics Group at the University of Chicago is to support research on several projects: (1) the CDF detector at Fermilab; (2) several experiments on CP violation at Fermilab; (3) the OPAL experiment at LEP (CERN in Geneva, Switzerland); (4) the MEGA experiment at Los Alamos; (5) a magnetic monopole search; and (6) an extensive air shower detector array at Dugway Utah. The Chicago particle physics group performs experiments in particle physics at many different laboratories. Their work is recognized as among the most interesting and significant in the field. It will lead to greater understanding of the fundamental forces and constituents of matter.